Collaborative Research: Planning: Track 1: Beyond Recruitment: Engaging Allies to Foster Black Junior Environmental Engineering Faculty Success

Environmental engineers play significant roles in advancing socioeconomic and environmental justice. In particular, Black Environmental Engineering faculty are and have been stewards of workforce training in equitable environmental engineering practices, and in designing and implementing technological systems that directly impact underserved, marginalized communities. The underrepresentation and stagnation of Black faculty in Environmental Engineering, therefore, is particularly concerning for the future of the field. Recent renewed efforts by higher education academic institutions to attract and hire Black junior faculty and increase racial and ethnic diversity have limited success due to: lack of inclusivity following recruitment; devaluing of Black faculty contributions and approaches to research, teaching and service; and, the existence of systemic implicit and explicit biases that derail professional success and mobility. To help address this issue, the Broadening Participation in Engineering project will develop a workshop at the 2022 Association of Environmental Engineering and Science Professors (AEESP) conference to engage the Environmental Engineering community regarding unique challenges facing Black junior faculty, and strategies to improve recruitment and retention of Black faculty. The findings from the workshop will be disseminated to the broader Environmental Engineering community and beyond in efforts to uplift Black faculty in the field and in other academic and scientific spaces.

The overall goal of this project is to develop a workshop for the 2022 Association of Environmental Engineering and Science Professors (AEESP) conference to engage the community and identify strategies to promote retention and increase success of Black, junior faculty in Environmental Engineering. The number of Black, Environmental Engineering faculty has stagnated despite efforts of academic institutions to target and recruit Black applicants. Greater representation of Black faculty in Environmental Engineering is especially important as historic engineering practices have disproportionately negatively impacted disenfranchised communities, and environmental engineers often champion democratized access to clean and safe resources, goods and services. The specific goals of this project are to: (1) raise awareness among the AEESP community of the significance of the 2022 workshop; (2) lead a workshop at the 2022 AEESP meeting to engage stakeholders and identify roles for allies; and, (3) disseminate findings from the workshop to the broader Environmental Engineering community. The workshop will be led by three, Black, junior Environmental Engineering faculty, in addition a faculty member with expertise in equity in engineering education and racial marginalization in academia. The outcomes of this workshop will be leveraged to springboard future research and framework development for use by academic heads, departments and allies, and to ultimately increase participation and retention of Black faculty in Environmental Engineering.